Chapman Conference on Mechanisms of Millennial-Scale Global Climate Change; Snowmass, Colorado; June 1998

Abstract ATM-9729261 Clark, Peter Oregon State University Title: Support of a Chapman Conference on Mechanisms of Millennial- Scale Global Climate Change; June 1998 This award will support a Chapman Conference on "Mechanisms of Millennial-Scale Global Climate Change," in June 1998. This conference will provide an international forum for discussion of mechanisms that may account for millennial-scale climate change. Unlike orbital-scale climate change. which has a well-defined forcing mechanism in changes in solar insolation, the cause(s) of millennial-scale climate variation remain(s) unknown. The growing paleoclimate database relevant to this issue is now of significant breadth to provide critical information required to address these issues. The central themes of this conference will address two key questions: (1) what is the sensitivity of various components of the Earth's climate system to millennial-scale climate change? (2) What are the mechanisms, linkages, and feedbacks which produce millennial-scale climate change?